Workshop on Geospace Environment Modeling: Definition Phase of the Theory Campaign on Magnetopause and Boundary Layer Physics

A workshop on the magnetopause and boundary layer physics is planned for the definition phase of the GEM program. This workshop will bring together theoreticians and experimentalists to review their knowledge of boundary layer physics and to recommend the future direction of research. Small working groups will be formed to define the theory campaign and its interaction with observational research. The research topics of this workshop are important in understanding microscale processes in the solar wind-magnetosphere-ionosphere-mesosphere coupling on a global scale.